SBIR Phase I: Neo360 Scope - A Novel Endoscope with High Resolution Optically Unwarpped 360-Degree Imaging Capability

This Small Business Innovation Research (SBIR) Phase I research project aims to develop an endoscope with a 360 degree field of view that is based on the 360 degree optical unwrapping technique recently developed by the company. The proposed technology obviates the need for turning the endoscope to get a good view of the GI tract.

In addition to its medical application, the proposed device would also be useful in many other areas where getting a full field of view is of importance